Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM)

Douglass Project for Women in Mathematics, Science and Engineering
Rutgers, The State University of New Jersey
Joseph J. Seneca

Established in 1986, the Douglass Project encourages women to study, explore, and pursue careers in mathematics, science and engineering. The project is housed at Douglass College which is among the largest undergraduate women's colleges in the United States, enrolling more that 3,000 students of whom 33% are women of color, 40% are first generation college students, and 30% come from homes where a language other that English is spoken. The project provides a three-year hands-on science program for 9th-11th graders; peer, faculty and graduate student mentoring; internships; and, opportunities for students to interact with role models. An outreach component to a grammar school and to Girl Scouts of the U.S.A. is also part of the program. Over 900 female high school students have participated in the hands-on science program.